Development Problem Solving Computer Literacy Laboratory at SUNY-Geneseo

This project develops a laboratory to support a "computer literacy" course based on the problem solving techniques used by computer scientists. This course addresses some of the deficiencies in problem solving skills observed in the general student body. Computer scientists want their courses to reflect the skills which computer scientists practice. On the other hand, computer literacy courses must also serve the needs as perceived by other departments. Therefore, the course employs common forms of applications software as tools. Students develop sufficient skills in those tools while concentrating on the problem solving aspects of the course. The course is aimed primarily to those students who do not intend to pursue the field of computer science further, in particular education majors. The new service course addresses serious problem solving or reasoning issues - in the context of computer applications. Formal problem solving techniques are presented in a manner understandable by non-technical students. These are the same techniques used by computer scientists, and other members of the scientific and mathematical communities in many aspects of their work. Students also acquire a knowledge of spreadsheets and data bases in a manner analogous to the way chemistry students learn about balances and Bunsen burners: both are tools used while addressing serious intellectual problems.